Student Designed Projects in Measurements and Instrument- ation

This project supports an innovative curriculum improvement in this institution's undergraduate mechanical engineering program. With the equipment funded by this awards, students are able to design their own experiements in mechanical measurements and instrumentation, incorporating computer data acquisition and analysis as part of the laboratory experience. The equipment included in the measurements lab includes: analog/digital conversion system, data acquisition system, oscilloscopes, flow measurement system, temperature and humidity measurement system, linear displacement system,velocity and acceleration measurement system, roataional, load and torque measurement system. This award is being matched by an equal sum from the grantee.